Geometric Analysis on complete aspherical spaces

Proposal Number: DMS-0102552

The principal investigator studies complete
aspherical spaces with particular emphasis on the
rigidity of local splitting structures
and the minimal volume problem. Dr. Cao
intends to continue his work on Gromov's
minimal volume gap conjecture jointly with
his coauthors. Using the F-structure theory developed
by Cheeger and Gromov and the heat flow, he
would like to study the minimal volume gap
conjecture for complete aspherical
manifolds. The investigator hopes to
show that if a compact nonpositively curved
manifold $M$ is homotopy equivalent to a generalized
graph-manifold, then $M$ must be a generalized
graph-manifold with vanishing minimal volume as well.
In addition, Cao plans to continue
his study of the sign of the Euler number of
compact aspherical manifolds.

This project focuses on the study of global
geometric shape of aspherical spaces. The examples
of aspherical spaces include flat tires and surfaces
with more than two holes, such as pretzels. There are
also examples of higher dimensional aspherical
spaces. Our universe can be viewed a 3-dimensional
aspherical space. Dr. Cao is trying to investigate
diameter, volume, spectrum and other geometric data
of those spaces. Cao has also been interested in the
study of the shortest closed curves on non-positively
curved spaces. He has already shown that two such surfaces
with possible cusps are isometric if and
only if the data of lengths of all shortest closed curves on
the two surfaces are identical. The data of lengths
of all shortest closed curves on a closed
surface M is called the marked length spectrum
of the space M. The study of marked length spectrum on
spaces with boundaries has a number of applications
in modern industry and geological sciences.